Wide-Band Wavelength Converters Based on Quantum-Well Traveling-Wave Amplifiers: A System Experiment

9412862 Vahala A series of systems level experiments of wide-band, lossless, wavelength converters shall be carried out. These wavelength converters are based on the principles of four wave mixing in quantum well traveling-wave amplifiers. The experiments planned include a measurement of the intensity noise introduced into the converted signal by the conversion process, a single channel system measurement testing the effect of the converter on bit error rate (BER), a two channel measurement to study potential channel cross-talk effects caused by the conversion process, and a feasibility test of semiconductor TWA wavelength converters for dispersion compensation by way of the spectral inversion technique. In addition, mixed-strain amplifiers will be investigated as polarization independent converters. The amplifiers used in this project will be supplied at no charge by AT&T Bell Laboratories. In addition, a 500MB/sec bit error rate tester will be donated to the project b AT&T Bell Laboratories (see letter in proposal). ***